Understanding and Teaching Spatial Competence

Spatial competence is a fundamental aspect of intelligence,
important to successful functioning. A high level of spatial skill
is critical to the achievement of a technologically sophisticated
work force for the twenty-first century. Spatial intelligence plays
a major role in effective education in mathematics, science and
engineering. The interdisciplinary research we will carry out
focuses on understanding of spatial intelligence and establishing
methods for maximizing the development of spatial skills. We will
study spatial competence at different levels of analysis. At the
biological level, we will will investigate the neurological
foundations for spatial growth. We will examine the growth and
organization of neural connections in areas of the brain that
underlie the processing of spatial information. At the behavioral
level, we will investigate the mechanisms that are involved in the
mental representation of the spatial aspects of the world. We also
will study the ways in which children come to understand spatial
symbols such as maps and models. We will study how acquisition of
these symbol systems affects the development of spatial intelligence.
This work will include computational modelling of spatial
intelligence. Finally, at the level of educational application, we
will investigate the educational input responsible for the
differential gains in spatial skill levels children achieve in
school. We plan to identify specific teacher practices that are
associated with high gains in student achievement. Our research team
has expertise in a variety of relevant fields, including neural
science, cognitive psychology, developmental psychology,computer
science, education, and statistics. This research team has worked
together for the past three years on research that has identified
core elements of spatial functioning. Our goal now is to further our
understanding of how the development of spatial competence can be
enhanced .M